The Dynamics of Equatorial Atmospheric Angular Momentum

The project will investigate the dynamical processes that generate intraseasonal variability in the equatorial components of the atmospheric angular momentum. These components of the 3D angular momentum vector are orthogonal to its axial component, which has been intensely studied in the past because of its association with variations in the zonal-mean zonal wind. The equatorial components, on the other hand, are related to planetary-scale atmospheric wave variability (including, potentially, the Madden-Julian oscillation), and are consequential for polar motion. Dr. Feldstein will conduct a dynamically oriented diagnosis of the mechanisms generating intraseasonal variability in equatorial angular momentum. He will analyze long-term integrations of atmospheric general circulation model (albeit with an idealized lower boundary condition) and a record of reanalyzed atmospheric observations (produced by the National Centers for Environmental Prediction) to shed light on the evolution of this variability. The project will advance the understanding of atmospheric angular momentum variability, and contribute to improvements in prediction skill of the medium and longer-range weather forecasts.